MRI: Acquisition of Equipment to Support Lightwave and Microwave Research

We propose an equipment grant to enhance ongoing and future lightwave communications and
radar remote sensing research and education at the University of Kansas. The instrumentation
we propose to acquire includes various lightwave components, a network analyzer, a portable
spectrum analyzer, two arbitrary waveform generators, a high-speed data acquisition system, and
a high-speed oscilloscope. The lightwave components includes lasers with integrated electro-absorption
modulators, high-power erbium-doped fiber amplifiers (EDFA), a semiconductor
optical amplifier (SOA), a 35-GHz photo receiver with amplifier, fiber-optic delay lines, optical
splitters/combiners, an extended DWDM-band tunable laser, and pump laser diodes for a Raman
amplifier.
We propose to use the lightwave equipment to upgrade our 10 Gb/s test beds to 40 Gb/s to
support ongoing and future research activities. We will use the high-speed oscilloscope and
spectrum analyzer for testing and calibrating our existing radars as well as the new ones being
developed for glacial ice studies and as prototypes for Mars observation. We will use the
arbitrary waveform generators as flexible signal sources to support activities related to ongoing
efforts on the development of a pulse-compression LIDAR and also investigating optimized
waveforms for various remote sensing applications. We propose to use the network analyzer
primarily as a dedicated source and receiver for our antenna testing range, which is needed to
support our radar development activities.
In lightwave communications research, the 40 Gb/s per optical channel is the next signaling rate
to be deployed to meet society's insatiable communication needs. Extensive experimental
testing is required to study and evaluate the many questions critical to the implementation of this
signaling rate. The proposed upgrades to our testbed will allow us to evaluate the performance
of components, subsystems, and systems at this signaling rate. To launch and then detect
40 Gb/s signals for system evaluation, short-pulse lasers, power dividers and combiners, and
wide-bandwidth photodetectors are needed. In addition, to manage fiber nonlinearities for these
increased signaling rates, distributed signal amplification with Raman amplifiers will need to be
employed.
Three ongoing projects in remote sensing will benefit significantly from the proposed test
equipment: (1) measurement of ice thickness and accumulation rate over the Greenland ice sheet;
(2) design and development of a radar prototype for Mars; and (3) design and development of a
pulse compression LIDAR for a future satellite mission. The test equipment will allow us to
improve our existing coherent radar depth sounder for obtaining ice thickness data over a few
outlet glaciers that are thinning and for which no ice thickness data are available. The ice
thickness data are essential to the study of the dynamics of these glaciers. The Mars radar
development involves design tradeoffs in modulation waveform, frequency, sidelobe levels, and
antenna size. The test equipment will contribute to testing and evaluating an optimized
prototype radar for a future Mars lander or/and orbiter, as well as investigating the use of single-sideband
modulation techniques to improve the sensitivity of our pulse compression LIDAR.
Currently 17 graduate students, seven undergraduate students, two post-doctoral research
engineers, and five faculty are involved in the ongoing research projects. We anticipate similar
numbers of students and research associates to be involved in future lightwave communications
and remote sensing research at this institution. Thus the proposed equipment is a significant
contribution to the research and education mission of the University of Kansas.